A Confocal Microscope for the Study of Developmental and Sensory Biology of Marine Organisms

A confocal imaging system will be purchased and coupled with a fluorescence microscope. These instruments will be utilized by five investigators studying (1) chemical signaling in developing and adult marine snails and worms; (2) the dynamics associated with the process of colonization of a host squid by its luminescent bacterial symbionts; (3) the structure and function of sensory antennae of marine copepods; (4) the temporal and spatial gene expression patterns of symbiotic luminous marine bacteria in their host' s tissues; and (5) the molecular basis of interaction between spores of marine green algae and microbial films on marine surfaces.